GOALI: Characterization of Dense Colloidal Suspensions With Frequency-Domain Photon Migration (FDPM)

ABSTRACT

Proposal Number: CTS-0213280
Principal Investigator: Sevick-Muraca, Eva M
Affiliation: Texas Engineering Exp Sta
Title: GOALI - Characterization of Dense Colloidal Suspensions with FDPM

In this project, the PI proposes to (i) develop and test new inverse algorithms for assessing particle size and size distribution in monodisperse, binary, and polydisperse suspensions from experimental multi-wavelength FDPM data, (ii) assess changes in FDPM measured scattering properties arising from depletion force, electrostatic interactions, and colloids functionalized with ligand receptor systems of biological significance; and (iii) evaluate those changes in the context of first principles models of partial structure factor. The final objective of the GOALI project is to develop a low cost, simple diagnostics tool in characterize the interaction between colloidal particles in dense suspensions. Extension of the system to on-line characterization of intermediate and final colloidal products is planned for chemical, pharmaceutical, and biotechnology industries.